A Molecular Mechanistic Approach to the Design of Lubricant Additives

Polar and surface active additives are usually added to lubricating oils to provide desired functional properties. Generally, additive selection is based on a trial-and-error procedure and no fundamental molecular understanding is available, especially when a mixture of additives is used. The goal of this research is to develop a molecular thermodynamic model for the action of polar components in a hydrocarbon media, used as a lubricant. This exploratory program is designed to determine the applicability of a thermodynamic model to tribology. The model will incorporate the interaction among different additive chemistries. The initial model will be checked experimentally with a few simple additives.